SBIR Phase I: Design of a True 3-D Information Display System

This Small Business Innovation Research Phase I project proposes the design of a computer monitor that provides true three-dimensional (T3D) views of a scene. T3D presents information over a volumetric space. Such a system does not suffer from the loss of depth information, because of the projection of 3-D information onto a 2-D screen. Since such a system is not available commercially, people often use stereo image-based pseudo 3-D display systems to satisfy the demand for visualizing information with increased realism. The research objective for Phase I is to provide T3D views by distributing the contents of a 3-D scene over several planes-of-views, and optically projecting these planes-of-views onto a movable projection screen. A novel scheme is used to synchronize the movement of the projection screen with plane-by-plane information generated on the CRT screen so that T3D views can be generated without flickers. The use of these innovative concepts is anticipated to contribute effectively in designing a commercial quality T3D display system at a reasonable cost. Thus, the proposed system is expected to find applications in the fields ranging from scientific visualization to entertainment.